Dissertational Improvement: Conspicuous Coloration in Male Northern Cardinals: Possible Benefits Throughout the Year

Conspicuous traits, such as vocalization in frogs or insects and showy plumage or bright coloration in birds, are perplexing because often they reduce the survivorship of the individual because they are costly to produce or display. In this project possible year-round benefits to conspicuous coloration in male Northern Cardinals (Cardinalis cardinalis), a species which has bright plumage throughout the year will be studied. One experiment will determine whether coloration influences territory quality and/or a male's ability to pair with an earlier breeding female. The coloration of males just prior to the breeding season will be manipulated in one of three ways - increase red, control (no color change), and decrease red. If coloration during the breeding season influences territory quality and/or timing of breeding, then significant differences among the treatment groups will be expected. If a male's coloration during the non-breeding season affects his ability to obtain a high quality territory and/or an earlier breeding mate, then the natural coloration prior to the manipulation to be correlated with these benefits will be expected. The second experiment will test whether red coloration influences a male's access to food and quality roosting sites. The same three treatments will be used and will determine foraging efficiency and choice of roost site for males in an aviary. These results should be of interest not only to behavioral biologists and ornithologists interested in sexual selection but also to evolutionary and theoretical biologists interested in the evolution of costly traits.